Late Silurian Hypersaline Seas in the Michigan Basin and Their Impact on Ancient and Modern Groundwater

The presence of hypersaline ocean water in the Michigan Basin region approximately 400 million years ago can be tied to the deposition of thick upper Silurian salt sequences, to the plugging of porosity by ancient saline groundwater in nearby middle Silurian hydrocarbon reservoirs, and perhaps to the development of extremely saline and metal-rich modern groundwater brines. In order to determine whether the ancient saline sea was isolated, with its surface well below the level of surrounding seas, both internal and external carbonate units will be analyzed for primary stable carbon and oxygen isotopic ratios. Carbon isotopic signatures will be used to deduce the depth of the saline sea whereas oxygen isotopic signatures will be used to deduce its regional extent and evaporation state. The presence of ancient saline groundwaters in middle Silurian hydrocarbon reservoirs will be documented by microthermometric analysis of trapped ancient fluids, which can reveal their temperature of formation, total salinity and cation content. Finally, the recent theory that saline seawater evolved into modern brines will be tested by reconstructing the late fluid history of middle Silurian carbonates located throughout the Michigan basin region. Both the timing of brine development and the extent to which basinal brines traveled out of the basin will be documented by analyzing both oxygen isotopic trends and the chemistries of fluid inclusions trapped in these rocks. The project will benefit undergraduate instruction through acquisition of equipment, rock samples and involvement of students in development of senior these topics.